Hamiltonian Dynamical Systems and N-Body Problem

DMS-0071494

Dr. Meyer will work on a variety of problems involving the $N$-body problem,
Hamiltonian systems and dynamical systems. Building on his recent work with
Dr. McCord on the integral manifolds of the spatial three body problem he will
study the geometry and homology of the {\it regularized} (compactified)
integral
manifolds of the spatial three-body problem. These are eight-dimensional
algebraic
sets which vary with the masses, energy and angular momentum of the particles.
These computations should refute Birkhoff conjecture, yield information on the
existence of cross
sections, and answer the Birkhoff question on cross sections in the negative as
they did in the non-regularized problem. As another application of the rich
topology found in the integral manifolds of the three-body problem, he will use
variational arguments to establish new classes of periodic solutions. Dr. Meyer
will also work on (i) simplifying the proof of the existence of Xia diffusion
in the three-body problem; (ii) the existence of comet-like
periodic orbits in the N-body problem; (iii) establishing the stability of an
equilibrium point of a Hamiltonian system in the case of 1:1 resonance; and
(iv) the evolution and bifurcation of invariant manifolds of a Hamiltonian
system which depend on a parameter.

Dr. Meyer will work on a number of problems in the qualitative theory of the
equations
which describe the motion of mechanical systems and celestial bodies, namely
Hamiltonian systems. One of the important equations of this type is the N-body
problem which describes
the motion of N masses -- the planets. Systems of this type typically conserve
energy and momentum and these conservation laws place global restrictions on
the possible motion of the bodies. Dr. Meyer has an ongoing research program
studying the ramifications of these
conserved quantities on the nature of the motion. Dr. Meyer will also
investigate the existence of regular and chaotic motions in these systems and
how these types of motions depend of various physical parameters. One type of
regular motion he will establish is
periodic motions in the N-body problem and one type of chaotic motion he will
try to establish is known as Xia diffusion. Dr. Meyer will also study the
evolution of the stable manifold of equilibrium solutions i.e. the evolution of
the set of solutions which tend to
an equilibrium (the stable manifold).